Symposium on Molecular Oxygen and Organic Peroxides in Chemistry and Biology

With this Award, the Organic and Macromolecular Chemistry Program of the Division of Chemistry and the Japan Program of the Division of International Programs support the Symposium on Molecular Oxygen and Organic Peroxides in Chemistry and Biology. The symposium will bring together junior and senior chemists interested in the broad area of molecular oxidations and organic peroxides at the 2000 International Chemical Conference of Pacific Basin Societies which will be held in Honolulu, Hawaii during December 14-19, 2000. Session topics include Synthesis and Reactivity of Organic Peroxides, Reactive Intermediates in Chemical and Biological Oxidations, Theoretical and Experimental Studies of Dioxygen and Molecular Oxidations, and a Poster Session.